Parabolic Equations and the Geometry of Complete Kaehler Manifolds

Abstract

Award: DMS-0504792
Principal Investigator: Lei Ni

The principle investigator proposes to study the interplay
between the geometry and the analysis on complete Kaehler
manifolds. The focus will be the linear and nonlinear parabolic
equations on complete manifolds with various curvature
assumptions. These equations includes the linear heat equation
and Laplacian operator, harmonic mapping heat equation, mean
curvature flow, Hermitian-Einstein flow, Ricci/Kaehler-Ricci
flow, etc. These equations have various physical and geometric
origins. But they share many common features such as geometric
symmetries and identities, monotonicity formulae, entropy like
considerations, differential Harnack (also called
Li-Yau-Hamilton) inequalities. They also connect to each other
in various ways. By studying them together, more light is shed
on all of them.

Differential Geometry is the study of the relationship between
the geometry of a space, a manifold in the mathematical notion,
and the analytic properties of the functions and the differential
equations, on the underlying space. Geometric analysis is the
study of the overall geometric and topological properties of a
space by piecing together the local information. Since the spaces
are usually curved ones, the ``curvature" was introduced to
measure the deviation from the Euclidean space and the techniques
are often `nonlinear' even dealing with a linear problem. The
study of this area of mathematics has close connection with the
general relativity and string theory in physics. The applications
can be found in the study of thestructure of complicated
molecules, liquid-gas boundaries, and even the large scale
networks. This project on studying the Kaehler manifolds via
linear and nonlinear parabolic equations will enhance the
understanding of geometric analysis, linear and nonlinear partial
differential equations, algebraic geometry and mathematical
physics.